Plasma Apparartus for Demonstrations and Experiments

A laboratory is being developed for the purpose of conducting experiments and demonstrations on the principles of plasmas and plasma processes. The RIT facility is well equipped with tools for the production of integrated circuit chips. This facility includes plasma etching equipment, but it is heavily automated and mechanically inflexible, making it difficult to use for demonstrations and experiments. This project will provide demonstrations and experiments designed to improve student understanding of plasma formation, plasma etching, and sputtering. The major components of the apparatus are (1) the plasma chamber (2) vacuum pumping system and (3) gas flow controls. The assembled apparatus will be interfaced with existing plasma diagnostic instruments for use. Laboratory demonstrations are planned to show the spectra of the plasma light emission, the chemical species in the plasma itself with and without etching, the sputtering phenomenon, and the various effects of parameters such as pressure, feed gas composition, Ac vs. DC power, and electrode spacing.